Acquisition of Ultra-Stable Mass Spectrometer

A special superconducting magnet with customized superconducting stabilizing coil which produces a factor fo 50 reduction in effects of external field perturbations, housed in a customized liquid helium cryostat designed to reduce temperature- dependent effects by two orders of magnitude, will be pruchased and applied to mass ratio measurements of unprecedented accuracy. Such measurements will include the proton's atomic mass, the tritium-helium 3 mass difference, the 15N-14N mass difference, and electronic binding energies in multiply-charged high-Z ions. Accurate results for these measurements would provide severe tests of various atomic and nuclear structure theories and models.